Investigation of the CO2 System during the 1989-GOFS Expedition in the North Atlantic

The total CO2 concentration and partial pressure of CO2 will be measured in discrete water samples during the scheduled 1989-GOFS North Atlantic Expedition along the 20 W meridian between 33 N and 60N. The total CO2 concentration will be determined at sea by means of a coulometer with a precision of +1.5 uM/kg or better, and the CO2 partial pressure will be determined also at sea by means of equilibrator-gas chromatograph method with a precision of 0.1%. With a team of two analysts aboard (i.e. one for each instrument), 40 to 45 water samples will be analyzed per day for each of these CO2 properties. With this rate of data production and with the precision of measurements, the CO2 distribution associated with major ocean dynamic features as well as fine features in the CO2 distribution within and below the photic zone of the ocean can be resolved. The total CO2 and pCO2 data collected during the expedition will become part of the basic communal data set for the GOFS participants. Using the hydrographic, biological and chemical data, the following questions will be addressed; 1) the orgin of a strong CO2 sink area centered at 50 N and 20 W, which was observed in the surface water during the 1981-TTO/North Atlantic Study; 2) the geographic and depth variability of the C/P ratio for regenerated nutrients in the water column using the isopycnal analysis method of Takahashi et al. (1985); and 3) seasonal changes in the CO2-nutrient chemistry in the subarctic and temperate gyre regimes, and interaction between these two regimes in terms of the bio-geochemical processes occurring within the transition zone.